Uncertainty in Computation

The workshop on Uncertainty in Computation will be held at the Simons Institute for the Theory of Computing from October 4 to October 7, 2016. The workshop is part of a program on Logical Structures in Computation that will take place from August 14 to December 16, 2016. The underlying theme of the workshop is to explore the viewpoints of the fields of logic, analysis of algorithms, and computational complexity on uncertainty in computation. The broader significance and importance of the workshop is that it will enhance communication between the mathematical logic community and the community of algorithms researchers within computing science. The workshop will encourage students to attend, and the organizers will actively recruit scientists from a diversity of backgrounds.